Mathematical Sciences: Numerical Methods for Molecular Dynamics

9304268 Skeel The investigator continues work on numerical methods for molecular dynamics. The objective is to find numerical algorithms suitable for large parallel computers that can much more efficiently model the dynamics of macromolecules such as proteins, DNA, and lipids. Emphasis is on the use of integration schemes, notably symplectic schemes, that can use large time steps to produce qualitatively correct simulations for long-time integrations. The goal is to obtain the desired information with the least computational effort, and the methodology is to use mathematical analysis and computational experiments on model problems. The techniques developed are to be tested on realistic molecular models as part of a different, complementary research project involving software development. Among the techniques to be considered, the better known ones are multiple time steps, constraint dynamics, and fast Coulomb solvers. Mathematical formulas and computer programs are being devised that can predict typical motions of large molecules such as proteins and DNA. The aim is find shortcuts that enable very fast calculations on large computers. These ideas are tested for accuracy and speed, and the more useful ones are put into the software that biologists and other scientists use to study the action of molecules. Computer simulations can help the scientist to understand how molecules perform biological functions, which can be very difficult to observe experimentally. Such studies are also useful in the design of molecules for agricultural and medical purposes. ***